SBIR Phase I: A Hydro Optical Analysis System (HOPAS) for Environmental Monitoring of Water Quality

This Small Business Innovation Research Phase I project in Information-Based Technology will develop a user-friendly yet powerful software package that enables users to import marine or fresh water optical data in commonly used formats; process the data with a variety of ecological and radiative transfer inversion models to derive essential physical, chemical, and biological descriptions of the water column; and view/export the resulting information in convenient digital and graphical formats.

This software will be the tool that connects commercial optical instrumentation and recently developed radiative transfer models with the large communities of oceanographers, ocean color remote sensing researchers, and water-quality and aquatic-resource managers.